Dissertation Research: Molecular Systematics, Floral Evolution, and Developmental Genetics in Basal Angiosperms

A grant has been awarded to Dr. Douglas Soltis of University of Florida and Mr.
Michael Zanis of Washington State University to investigate the genes governing flower
development in "primitive" flowering plants. Much is known about the genetics of
flower development in the higher flowering plants, Arabidopsis (thale cress) and
Antirrhinum (snapdragon). In contrast, little is known about the genetics of flower
development in primitive flowering plants. Dr. Soltis and Mr. Zanis are focusing on
isolating and characterizing MADS-box genes, a family of development regulatory genes,
from two primitive flowering plants, Nuphar (a member of the waterlily family) and
Illicium (a member of the star anise family). They have developed a method for
extracting RNA from Nuphar and Illicium flowers, and are using degenerate polymerase
chain raction (PCR) to amplify and obtain DNA sequences of MADS-box genes. The
relationships of the MADS-box genes isolated from Nuphar and Illicium are compared to
MADS-box genes isolated from other flowering plants. Lastly, using RT-PCR Dr. Soltis
and Mr. Zanis are characterizing the floral tissues in which the MADS-box genes are
expressed.
Understanding the genes involved in flower development in primitive flowering
plants, such as Nuphar and Illicium, is critical because of the insights they may provide
into the early angiosperm flower. Moreover, elucidating the genetics of floral
development in these key flowering plants not only will help to answer questions
regarding the origin and diversification of the flower, but will also provide the
opportunity to link what is known about model flowering plant systems, such as
Antirrhinum and Arabidopsis, with other flowering plants, providing a more
comprehensive picture of floral development.